FOMMS 2003: Foundations of Molecular Modeling and Simulation, a Workshop to be held at Keystone Resort in Keystone, CO, July 6 -11, 2003

Ely, James F.
Colorado School of Mines

"FOMMS 2003: Foundations of Molecular Modeling and Simulation, July 6 - 11, 2003, Keystone, Colorado."

The second triennial conference on Foundations of Molecular Modeling and Simulation (FOMMS) will be held July 6 - 11, 2003 at Keystone Resort in Keystone, Colorado. The meeting will be held in a Gordon Conference style with plenary talks in the morning and evening and with two afternoon poster sessions for contributed papers. The plenary program also includes: industrial and biological applications, polymeric and electronic materials, reaction engineering, nanotechnology and advances in molecular simulation techniques with a final session in future vision.

The proceedings of the conference will be published in a combination of Molecular Physics and Molecular Simulation.